Parallel and Distributed Integration Algorithms

9405377 deDoncker Numerical integration has many applications in various areas of science and engineering. Computationally intensive multiple integrals arise in areas such as atomic and nuclear physics, statistics and the analysis of sensory data. This project involves the design, analysis and development of a set of coarse grain parallel and distributed algorithms for multivariate numerical integration. The main focus is on adaptive integration strategies layered over a system for distributed queue management. Implementations are targeted to loosely coupled systems. Adaptive integration is used as the main tool for integrals over regions of low to moderate dimension. The queue management incorporates the insertion and deletion of subregions (tasks) into and from the distributed task pool while retaining balanced or approximately balanced loads in the local queues. It will be adapted to the problem as well as the types of processors and the speed of communications in the loosely coupled system. For low dimensionality special attention will be paid to the use of (near) optimal degree rules and techniques dedicated to the treatment of specific integration problems such as singularities or particular weight functions. Number theoretic methods will be included for high dimensions, irregular regions or erratic function behavior. ***